An Automated Learner for Phonology and Morphology

This basis of this project is a machine-implemented algorithm that
learns the phonological and morphological rules governing inflectional
paradigms. The algorithm, following exposure to a set of learning
data, can generate appropriately inflected forms for novel stems. The
system has the capacity to generate multiple guesses for a given stem,
and offers gradient "well-formedness judgments" for each, which
correlate well with the well-formedness judgments of human speakers.

The project will involve two activities. First, the algorithm will be
used in exploring areas of phonology and morphology that have hitherto
been underinvestigated because they require the kind of detailed rule
systems that can best be discovered by machine. Pilot evidence,
primarily from Italian, indicates that people learn the phonological
generalizations of paradigms in surprising detail, in a way that is
approximated by the machine algorithm. The project will explore such
detailed systems further though large-scale "Wug"-testing experiments,
in which subjects provide inflected forms for nonce stems.

Tests will be carried out in four areas. *English past tenses* are
important because they relate to a large body of work in computational
modeling and psycholinguistics. *Spanish diphthongization*
exemplifies a process that is subject to irregularity, but is
phonological rather than morphological. *Korean stem-final consonant
alternations* are involved in a major diachronic restructuring, which
the algorithm will be used to model. *V ~ O alternations in Polish*
bring evidence from the learning algorithm (and parallel judgments
and productions of native speakers) to bear on theoretical issues of
abstractness and opacity.

The learning algorithm will be developed further, incorporating
resources from computational linguistics: richer phonological
representations, more sophisticated methods of finding phonological
rules, and a morphological parser to serve as a front end. The revised
algorithm will also incorporate elements of phonological theory: a
projection-based theory of long-distance rules (permitting the
algorithm to discover vowel-to-vowel processes), and a conception of
derived-environment processes that proceeds naturally from the
algorithm.

The proposed project will (a) increase our knowledge of how phonology
and morphology work at the level of detailed generalizations; (b)
provide a test for phonological theories; (c) contribute to the
education of linguistics students in developing lexical databases,
programming, and carrying out experiments; (d) provide databases
usable for testing learners developed by other researchers.